Mesosphere Lower-Thermosphere (MLT) Wind Measurements at Durham

Abstract: ATM-0075990

"Mesosphere Lower-Thermosphere (MLT) Wind Measurements at Durham"

Dr. Ronald R. Clark, Univ. of New Hampshire, Durham, NH

This award provides funds for the continued operations of the Univ. of New Hampshire meteor radar over a two year period to monitor continuously the dynamics of the mesosphere and lower thermosphere. These observations would be studied to improve our understanding of planetary dynamics, tides and gravity waves as a part of the global task force organized to collect and analyze jointly these observations. The objectives of this study would be the investigation of temporal and spatial variability of the mean, planetary and tidal components through intersite comparisons. A particularly interesting difference in the approach that would be used compared with the normal mode of analysis is the plan to carry out common volume measurements between the UNH meteor radar and the incoherent scatter radar facility of Millstone Hill. Magnetic storm effects and continued climatological studies of the wind field are secondary objectives of this effort.